Coordination of Water Resources Planning and Management in the U.S. Federal System: Future Options and Guides for Research

A conference will be carried to examine the coordination of water resources planning and management in the U.S Federal System, the future options, and guidelines for research. The organizers have agreed to include water-related hazards in the conference thematic agenda.